Mathematical Sciences: Mid-Atlantic Mathematical Logic Seminar

The Mid-Atlantic Mathematical Logic Seminar began in 1982. It now holds four 3-day meetings and several shorter meetings per year. The seminar covers a broad spectrum of mathematical logic with particular emphasis on complexity theory and theoretical computer science, models of arithmetic, model theory and model theoretic algebra, set theory, sub-systems of analysis (the "reverse mathematics" program of H. Friedman and S. Simpson) and topos theory. Foundation funding permits bringing speakers from outside the geographic area, also attendance by graduate students and others without outside support, as well as some incidental expenses. The quality of the seminars has been remarkably high and the cost modest.